Ice Sheet/Ocean Interactions, East Greenland Continental Margin During the Last 14,000 Years

9224254 Andrews This award supports a program to study sediment cores from the inner continental shelf and fjords of East Greenland. The goals are to determine paleoclimatic conditions and to understand ice- sheet ocean interactions during the late Quaternary. The project will use oxygen isotopes, carbon-14 ages, benthic foraminifera, and sediment provenance studies to develop a high resolution history of the paleoenvironmental conditions in the region. This project will develop information about the extent and duration of sea ice cover on the inner continental shelf of East Greenland during the late Quaternary and about discharge of freshwater from melting of land based ice in the Arctic Basin. The results of this work should be useful to help constrain models of climate change that are being developed from the Greenland Ice Sheet Project (GISP) ice core. ***